RUI: Surface Defects and Desorption Processes on Nonmetals Studied by Ultrafast Spectroscopy and Atomic Microscopy

Desorption of atoms from surfaces is being investigated with ultrafast spectroscopic techniques and surface microscopy. The work should lead to real-time visualization of desorption phenomena down to time scales of 10-13 sec in selected systems. The atomic force microscope is employed to image surfaces of ionic insulators eroded by desorption of substrate atoms. The work seeks to correlate atomically resolved surface defects on compound semiconductors, such as gallium phosphide, with special desorption sites identified in sub-gap laser-induced sputtering. Two-photon ultrafast spectroscopy is used to obtain dynamic data on surface defect states in insulators. Desorption from insulator material surfaces induced by electronic excitation is an important concern in application areas such as component survivability in earth orbit, intense pulsed ion sources for accelerators, sputter erosion and deposition of films, laser ablation, and laser cleaning.